Collaborative Research: Stability, Wave Breaking and Mixing in Stratified Flows

Milewski
DMS-0604635
Tabak
DMS-0604520

The atmosphere and ocean are stratified fluids and as such
support the propagation of disturbances through internal waves.
These internal waves may deform nonlinearly and break by
overturning, leading to the mixing of the ambient fluid. Both
the atmosphere and ocean also display strong shear flows that may
become unstable, producing rolls that can also lead to mixing and
local homogenization of the density. The investigators study the
issue of which of these two processes prevails in a given flow
configuration. Based on preliminary work, the investigators
conjecture that in the shallow water regime there is a sharp
boundary below which the dynamics disallow shear instabilities,
leaving only wave breaking as the possible mixing mechanism. In
mathematical terms, they consider systems of partial differential
equations of mixed type, where the hyperbolic domain corresponds
to the internal waves and the elliptic domain to shear
instability. The question of nonlinear stability of the flow can
then be formulated in terms of whether the solutions themselves
can make the system become elliptic. The investigators have
proved that this cannot happen for a simple system and here
extend the result to much more general scenarios. In addition to
this stability result, they propose a closure that quantifies the
mixing taking place when waves break.

Understanding and quantifying fluid mixing is a key
ingredient in global weather and climate studies. The atmosphere
and ocean are stratified fluids: fluids whose density varies
(primarily) with height due to temperature, salinity and other
effects. Stratified fluids allow for the propagation of internal
waves, and these waves may eventually break and mix the fluid.
Another possible source of mixing is due to shear instabilities:
the formation of eddies at the interface between flows of
different speeds. In this project the investigators study which
of these two effects is more likely to prevail given the ambient
conditions. Such a study has far-reaching implications: the
atmospheric and ocean mixing layers control the coupling between
the two, and hence exert a critical control on the evolution of
the climate. The work advances the predictive capabilities of
coupled atmosphere-ocean models, by improving their
parameterization of fluid entrainment and mixing. It also trains
undergraduate and graduate students in the use of applied
mathematical tools for the advancement of the natural sciences.